MRI: Acquisition of a High-Power CO2 Laser for Research and Education in Manufacturing and Materials Processing

This Major Research Instrumentation (MRI)Program grant provides funds to procure a high-power CO2 laser system for research and education in manufacturing and materials processing. The laser system consists of five major functional components, including a laser generation unit, optics and beam delivery system, a chiller and cooling system, gas control and supply system, and motion and control system. The equipment will allow both fundamental and applied research in: (1) Welding of High-Strength Aluminum Alloys; (2) Welding of Zinc-Coated Steels; (3) Dual Beam Welding and Cutting; (4) The Formation of Striations in Cutting; (5) Cladding of Functionally Graded Thermal Barrier Coating; (6) Laser-Aided Sheet Metal Forming/Bending; (7) Surface Treating of Metals; (8) Laser-Material Interactions and Keyhole Formation; (9) Sintering of Ceramic Coating and Metal Films; and (10) Process Modeling and Real Time Control.

Availability of the equipment will enable the institution to create new research capabilities and opportunities, to enrich the teaching of several senior and graduate courses, to stimulate cross-disciplinary teamwork, and to enhance university-industry-government collaborations. Faculty members and graduate and undergraduate students from several academic departments will form interdisciplinary teams to conduct the aforementioned research projects using the acquired laser system.